Acquisition of a MALDI-TOF Mass Spectrometer and Cyber-Enhancement of CAMCOR Facilities

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Oregon will acquire a Matrix-assisted Laser Desorption Ionization Time of Flight Mass Spectrometer (MALDI-TOF). The spectrometer will be used in a variety of research projects including RNA-metal ion adducts, conjugated ionomers, gold nanoparticles, photodegradable polymers, carbon-rich network materials, and supramolecular complexes.

Matrix assisted laser desorption ionization (MALDI) time of flight (TOF) mass spectrometry is the technique of choice for characterization of synthetic and natural macromolecules. It allows molecular weights of large molecules to be determined accurately and structures to be deduced. The cyber-enabled instrument will be housed in the Center for Advanced Materials Characterization in Oregon (CAMCOR), a facility open to other regional users.